SBIR PHASE II: Genetic Improvement of Penaeus Monodon

*** 9732533 Shleser This Small Business Innovation Research (SBIR) Phase II project focuses on genetic improvement of the Black Tiger shrimp, Penaeus monodon. This species represents 75% of world production of farmed shrimp valued at more than 3 billion dollars annually. The overall objective is selective breeding of this shrimp for performance in a farming environment. Specific pathogen free stocks will be genetically identified for selective breeding. The ability to identify members of full-sibling families to establish and maintain pedigree records over several generations is essential to a selective breeding program. Polymerase Chain Reaction (PCR) amplification of introns in conserved nuclear genes will be used to identify alleles that can be used to manage the breeding program. Phase II will identify specific pathogen free stocks; identify alleles that can be used to direct the selection process; develop cost effective methods to monitor populations; and develop additional markers to monitor heterogeneity and reduce inbreeding. Commercial application is expected in genetically improved broodstock for export and post larvae producion in Hawaii to shrimp producers worldwide. ***